STRATMAN: Net Shape Manufacturing Engineering by Plasma Technology

The aim of the project is the manufacture of net shapes of high performance composites at high rates via high production rate plasma spray technology. If such shapes can be quickly produced from a variety of materials, product design and even manufacture can be greatly expedited. The spray forming of net shapes is currently limited by a lack of understanding of the materials science and process science bases of the technology. The project will address the key issues related to this technology in order to optimize water-stabilized plasma (WSP) and electromagnetically coalesced plasma (EMCP) processing. An interdisciplinary program will be developed for process diagnostics/modelling and microstructural and mechanical characterization of the deposit. Industrial collaborators are an integral part of the research team that has been formed to address plasma-based manufacture of net shapes. The high powered water-stabilized DC plasma torch and electromagnetically coalesced torch may enable production of free- standing structural forms, comprised of ceramics, metal alloys and composite materials. WSP spray processing of materials can be carried out at considerably higher temperatures than is possible for gas-stabilized plasmas (viz. 30,000K versus 15,000K). The EMCP route enables the spray-forming of ceramics or composites from feed materials that are in the liquid or slurry forms. These processes permit the use of both larger particulate-sized feedstock powders and an increase in spray processing through-put by at least an order of magnitude; i.e., from 5 to 50 kg of alumina (for example) per hour.